U.S. Social Security Policy: A Dynamic Analysis of Incentives and Self-Selection

The object of this research project is to adapt a dynamic programming model of retirement behavior developed by the author of this study and a computational strategy developed by others to address a number of important questions regarding the Social Security System. Among the questions to be addressed are: (1) How will changes in the 1983 Social Security amendments affect retirement behavior? How much will it affect the labor supply of older workers? (2) What kinds of individuals will self select delayed retirement credit because of increases in these credits? (3) Are the new rules fair in actuarial sense? What will be the net impact on total Social Security outlays? (4) More generally, what is the form of an efficient Social Security policy? These questions will be addressed by estimating utility functions with a data set of male workers taken from the Retirement History Survey. This research is important because it will answer questions about the impact of changes in the Social Security System on the viability of the system and on the benefits to recipient.